Acquisition of a Large Beowulf Computer Cluster for Across-Discipline Research and Education at Embry-Riddle Aeronautical University

A 256 node (128 pair) Beowulf parallel computing cluster is used to improve the realism of gravity-wave modeling by permitting treatment of the three dimensional problem and multiple wave interactions. The infrastructure resource is also to be used by computationally intensive modeling of turbojet fluid dynamics and meteorological forecasting. The former project forges as relationship by which private research funds are pledged by a corporate sponsor, and the latter establishes a direct research link between the lead institution (Embry-Riddle) and Bethune-Cookman College. That particular research link establishes direct access to a skilled population underrepresented in Space Science, facilitated by a well-established institutional advocate. The broad impacts of undergraduate opportunity, direct interaction of Space Science research with a well-trained but underrepresented population, and corporate sponsorship are features of this research, not the more common afterthought.